BioMADE: Reducing Cost Drivers for Cell Cultured Chocolate

The US chocolate industry is nearly $24 billion in size. It depends on cocoa imported from a few tropical countries. Cocoa prices are vulnerable to extreme weather, disease outbreaks, political instability, and a growing global demand. The price reached an all-time high of $12,565 per metric ton in December 2024. Producing cacao in the US under controlled conditions could stabilize the supply chain. This project attempts to produce cacao from plant cells grown in low-cost reactor systems. This would guarantee a steady supply of cacao produced in the US. The project is focused on improving the production of cacao in plant cell cultures. It will also evaluate low-cost materials of construction for the reactor systems. The project will help in training students to participate in the future bioeconomy workforce.

Manufacturing cacao would be expensive using current technology. An economic analysis of the technology required points to several key costs. Bioreactors are traditionally made of steel and are sterilized using high-pressure steam. Steel construction is expensive. High pressure steam is expensive, contributing to high annual operating costs. The productivity of batch cultivation of cacao is low, further contributing to high annual costs. To address these limitations, the team will pursue several strategies. High-density polyethylene (HDPE) bubble bioreactors will be custom designed. Alternate sanitization strategies will be evaluated. Process intensification strategies based on semicontinuous operation assisted by real-time in-line biomass monitoring will be developed, along with low-cost drying methods, to increase volumetric productivity and product quality. Technoeconomic analysis (TEA) and life cycle analysis (LCA) models will be developed to guide the process research and development efforts to ensure economic viability and sustainability. Results from this project directly apply to other plant cell and/or algal cell bioreactor-based processes, as well as other fermentation processes that require lower capital and operating costs, particularly microbial/fungal production of food and commodity industrial products.

This project is being jointly supported by ENG/CBET/CBE and the BioMADE Manufacturing Innovation Institute.